Acquistion of a Nuclear Magnetic Resonance Spectrometer for Chemical Science Research

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Major Research Instrumentation (MRI) Program will assist the Department of Chemistry at University of Iowa to acquire a 400 MHz nuclear magnetic resonance (NMR) spectrometer. This equipment will enhance research in a number of areas including the following: (1) synthetic fluoroolefin chemistry, (2) novel biologically active natural products from fungi, (3) organometallic chemistry and reactivity of unusual iron porphyrins, (4) synthetic chemistry and biology of novel nucleosides, nucleotides and nucleic acids, and (5) synthesis of phosphonates and bis-phosphonates. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.